Evaluation of the Response of Base-Isolated Buildings in theNorthridge Earthquake

9416530 Tajirian The objectives of this project are to study the response of base- isolated structures using computer simulation and to evaluate their current design code provisions in light of the strong-motion data obtained during the Northridge earthquake. The response of four isolated structures located in Los Angeles area instrumented by the California Strong Motion Instrumentation Program SMIP) will be estimated using simplified techniques and recorded ground-motion data, and compared with the recorded structural responses. In addition, a detailed analysis of the University of Southern California Hospital structure will be carried out. A three- dimensional, non-linear model of this building with a simplified soil-structure interaction model will be created and used to the assessment of the predictability of the response of base-isolated structures subjected to moderate ground motions, and the effects of soil-structure interaction in the response of base-isolated structures. This is a Northridge Earthquake Project.